Project MICRO-CALC: Microcomputer for Classroom and Learning Center Calculus

Borough of Manhattan Community College, the only public two year college in Manhattan will create a microcomputer classroom for its precalculus and calculus courses. They will also add computers to their Learning Center for the use of the precalculus and calculus students. The precalculus and calculus curriculum will be enhanced with interactive graphic activities which emphasize basic concepts, functions and their properties. Half of the students will be majors in the newly established Science Concentration, Engineering Technology and Computer Science. The student population is 67% female and 83% minority. The grantee is providing an equal sum for the equipment obtained from non-Federal sources.